"Walking on Water": A Presentation of the PBS American layhouse Series

This project, WALKING ON WATER, chronicals the success of Jaime Escalante's nationally acclaimed mathematics program at Garfield High School in Los Angeles. Overcoming crime, poverty and a 50% drop-out rate, Mr. Escalante transformed Hispanic students with deficient scholastic backgrounds into the top calculus students in the country. As a result of this success, Garfield High School is now a magnet school for math and science in the Los Angeles School District. Mr. Escalante's story will be told in a 90 minute film docudrama which will air nationally on public television's American Playhouse series, the 14th most popular program on PBS reaching 1.2 million homes. The film is designed for general theatrical release, for educational distribution on cable, for videocassette release and will be dubbed into Spanish for airing in Spanish theaters. In addition, Eddie Olmas, the Emmy award winning star of Miami Vice who portrays Mr. Escalanate in the film, will use the film in personal appearances. Reviewers all agree that this story will inspire and motivate students and teachers alike. They also agreed that it is equally important to reach other significant audiences such as parents, school administrators and opinion leaders so that they will understand and support these types of education efforts.